Upgrade of a Departmental Gas-Phase Photoelectron Spectrometer

With support from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at the University of Arizona will upgrade a departmental gas-phase photoelectron spectrometer. This equipment will enhance research in a number of areas including the following: a) studies of metal-metal interactions; b) electron transfer in organic compounds containing heteroatoms; c) evaluation of molybdenum-sulfur interactions in molybdoenzyme model complexes; and d) electronic structure of porphyrins and metalloporphyrins.

The X-ray photoelectron spectrometer (XPS) is used for chemical analysis. It irradiates a sample with a beam of monochromatic X-rays and the energies of the resulting photoelectrons are measured and related to specific elements. XPS often plays a crucial role in defining the system under study. The work to be carried out by these investigators represents a highly coherent attack on a range of issues at the forefront of materials chemistry and biology.